Ergodic Theory and Additive Combinatorics

ABSTRACT

The investigator proposes a program of research, education, and outreach
on problems in combinatorial ergodic theory.
The setting is the study of the long term
behavior of systems whose dynamics is too complicated or too
chaotic to be understood locally. Dynamical systems are
used to model problems in natural and social sciences and their study
leads to an understanding of the evolution of the modeled phenomena.

The proposed research builds on results obtained over the past few years
in multiple recurrence and convergence,
The PI has proven the existence of certain multiple
ergodic averages and plans to study several related averages.
Nilpotent groups and the dynamical systems that can be defined on
their homogeneous spaces
play a key role in understanding the mixing properties of dynamical
systems. This area of ergodic theory has strong relations
to problems in additive combinatorics and the PI will continue
to explore these deep links.